Engineering Research Equipment Grant: Data Acquisition and Computation System

Data acquisition and computer equipment are to be acquired to support a broadly based research program involving turbulent flow characteristics and stability behavior, flame structure and combustion, and fuel mixing. The various items of equipment will permit an enhancing and extension of the experimental capability of several investigators involved in various phases of this ongoing research program.